A Unidata Internet Data Distribution Fail-Over, Relay, and Archive Site at Colorado State University

Abstract ATM-9526663 Roger A. Pielke and Steven V. Finley Colorado State University UNIDATA: Internet Data Distribution Fail-Over, Relay, and Archive Site at Colorado State University. Funding will enable the Atmospheric Science Department at Colorado State University (CSU) to participate in the Internet Data Distribution (IDD) system, while continuing to receive data via the KU-band system. The requested equipment will enable CSU to streamline data archive and retrieval. This equipment may enable CSU to become an IDD relay site.